REU Site: ASL-English Bilingual Cognitive and Educational Neuroscience Training and Research Experience (ASL-English Bilingual CENTRE)

The ASL-English Bilingual CENTRE is an eight-week intensive interdisciplinary research training program. Undergraduate trainees will receive hands-on training in cognitive neuroscience and neuroimaging from experts in educational neuroscience working on topics related to sign language and deafness. This interdisciplinary REU Site will promote the progress of science by providing high-end training and research experience in several neuroimaging techniques for investigating the mind and brain, all within a fully accessible bilingual ASL-English environment. This intensive training at Gallaudet University is uniquely positioned to support diversity in research and science by training Deaf and Hard-of-Hearing students who are typically underrepresented in STEM fields due to systematic language barriers. The school will be tailored for students early in their educational training to maximize the benefit for their future academic paths. This proposal has the unique potential to shape students’ academic choices, promote success in STEM, and ensure success for tomorrow's generation of diverse researchers and leaders in science.

The ASL-English Bilingual CENTRE aims to provide students with critical early-stage research experiences that will shape their academic and career decisions. Providing unique and supportive training in cognitive neuroscience will increase trainees' competitiveness in securing more research experience at their home institution, increase their likelihood of selecting STEM-related courses, and foster a peer and mentor network essential for retention in academia and research. Trainees will gain knowledge and training in state-of-the-art neuroimaging techniques, investigate groundbreaking research questions, experience day-to-day progress in a research lab, explore research ethics, and participate in career-building activities. Through several multi-day workshops, students will receive hands-on training in four neuroimaging techniques: fNIRS, fMRI, EEG, and psychophysiology. Activities will range from learning the practical aspects of data collection to the basic skills needed for data analyses. Students will be guided in processing neuroimaging datasets. Importantly, along with each workshop, students will be guided through ethical reflections related to conducting research in neuroscience with historically excluded populations, such as Deaf and Hard-of-Hearing participants. Beyond the workshops, students will further hone their skills through hands-on research experience in one of the cognitive neuroscience labs in the Ph.D. in Educational Neuroscience (PEN) Program by contributing to ongoing research activities. Their work will culminate in a final scientific presentation. To ensure continued success in academia, students will receive individualized mentoring from a PI and a peer graduate student during and beyond the summer school. Finally, thanks to the ASL-English Bilingual CENTRE, students will become part of a larger network of researchers, all members of the Visual Language and Visual Learning (VL2), an NSF Science of Learning Center, providing an enduring network of peers within a fully accessible ASL-English bilingual environment.